Research Initiation: Response of Saturated Silty Soils to Irregular Seismic Loads

Most of the populated regions of the world are concentrated in valleys, that is, on sedimentary deposits composed of different layers of cohesionless and cohesive soils, including nonplastic and plastic silts. The phenomenon of the amplification of ground motion in sedimentary deposits, as well as the loss of bearing capacity in all types of soils, and the liquefaction of saturated sandy or silty soils due to earthquake shaking, are only partially understood. The engineering properties if all soil materials (gravel, sand, silt, clay) under irregular seismic loads must be known in order to fully understand the above phenomena. This research project involves a laboratory investigation and analytical modelling of the response of saturated silty soils to irregular seismic loads. Loading conditions corresponding to the propagation of seismic waves will be simulated in the laboratory using cyclic direct simple shear and cyclic triaxial devices. Degradation of soil stiffness during cyclic loading, the associated variation of cyclic pore pressure, and the rules governing irregular cyclic stress-strain behavior are being investigated. The results obtained for silty soils are being compared to the corresponding available results on sands and clays. This comparison provides a basis for the development of mathematical models for the reduction in stiffness and the development of pore water pressure, valid for all three types of soils.